Medium Energy Spin Physics

Our group is active in research that uses spin-polarized beams and
spin-polarized targets to study issues in fundamental and applied physics.
Currently, our primary focus is in the search for new physics beyond the
Standard Model by performing a precision measurement of parity violation
in the scattering of polarized electrons by unpolarized electrons in a
liquid hydrogen target. The experiment, which is now being performed at
the Stanford Linear Accelerator Center, should eventually provide the most
precise measurement of the electroweak mixing angle at low energies.

Recently, our group has joined the Star Collaboration at Brookhaven. This
large collider physics experiment is presently commissioning a program to
scatter spin-polarized protons with high center-of-mass energies in order
to learn about the internal spin structure of the proton. The primary
question being addressed is 'how much do gluons contribute to the proton's
one-half spin'. Data over the next few years is expected to give the
first direct glimpse into this important question. Finally, our group is
also involved locally at Caltech in the development of spin-polarized
noble gas, namely helium-3 and xenon-129, for use in nuclear physics and
magnetic resonance imaging.